Anchialine Cave Invertebrates of the Bahama Islands

9870219 Iliffe Within the last 20 years, explorations by cave divers have resulted in the discovery of extensive, entirely submerged cave systems containing brackish to fully marine waters. Such caves have been termed "anchialine," derived from Greek meaning "near the sea." The anchialine cave habitat is comparable to the deep sea hydrothermal vents and the tropical forest canopy in representing one of Earth's last faunistic frontiers. Anchialine caves serve as refugia to relic "living fossil" organisms and to species closely related to deep sea taxa. Typical depigmented, eye-reduced anchialine taxa characteristically include remipedes, thermosbaenaceans, copepods, ostracods, amphipods, shrimp and polychaetes. Anomalous biogeographic relationships between cave species on widely separated oceanic islands suggest dispersal by plate tectonics or even global faunal connections via crevicular habitats on sea mount slopes and mid-ocean ridges. We will conduct a month-long expedition to faunistically rich but relatively unstudied anchialine caves on Grand Bahama and Andros Islands, Bahamas. Specialized cave diving techniques will be used for a broad based biotic survey of these caves. The proposed research will involve collection and identification of cave fauna and flora as well as investigation of the physical and chemical characteristics of the marine caves. Since many anchialine cave species are known only from a single cave or cave system, pollution or destruction of caves can result in the extinction of entire species. This study should result in the discovery and documentation of taxonomically and ecologically significant organisms from potentially endangered habitats.